GOALI/IUCP: Electroactive Polymers for Electromechanical Applications

ECS-9710278 Jerry Scheinbeim The objectives of the proposal are: (a) To investigate structure/property relationships governing electromechanical properties or polymeric materials. (b) To provide understanding of electroprocessing/microstructure relationships in order to control design of electroactive polymers with optimized properties for end-use applications. (c) To develop new electroactive polymers with unique electromechanical properties leading to rapid technological development. (d) To shorten the time period between research concept, to increased scientific understanding, and new technologies and devices by close collaborative studies involving Rutgers University (Polymer Electroprocessing Laboratory) and Penn State (Materials Research Laboratory), combined with the chemical synthesis work of Allied Signal and end-use applications expertise of AMP, Inc.